Workshop on Ultra-Large Networks: Challenges and New Research Directions for Modeling and Simulation

We propose to hold a two-day workshop in Tucson, Arizona during fall 2001 on emerging ultra-large
networks, such as the Internet. Hosted by Arizona Center for Integrative Modeling and Simulation, the
meeting will bring together some of the world's leading researchers in the networking area to meet with
counterparts with expertise in modeling and simulation of networks and of systems more generally. The
workshop will provide these researchers with the task of coming up with the unknowns of ultra-large
networks and with new directions of research in modeling and simulation that can address these unknowns.
The Internet is increasing in connectivity, toward 1 billion nodes in 2005 and node capability providing a
highly interconnected and computationally powerful medium. Such a globally and ubiquitously dispersed
network will provide a new frontier for new kinds of educational, commerce and entertainment activities.
However, there are many issues that arise in the emergence of such a large, highly decentralized, collection
of interaction parts. The increased connectivity and capability creates new complexity and dynamics that
we are only on the verge of appreciating. Difficulties in dealing with large-scale software systems are well
documented in a recent report by the National Research Council. Techniques that work for small software
systems fail markedly when the scale is increased by one million fold. Computer-based modeling and
simulation (M&S) methodology is required to address these issues since the scale is well beyond what
analytical tools alone can handle and there is limited ability to do controlled experiments on the always
on Internet. Traditional M&S approaches have focussed on the micro-level components rather than the
macro level integration of these components. However, with the advent of ultra-large scale systems such as
the Internet of the future, it is necessary to develop M&S approaches for understanding the behaviors of
very large inter-connected networks with very few loci of control and many interacting and varied sources
of input and services demand.
The results of this workshop are expected to be a set of specific finding of gaps in our knowledge of the
behavior of ultra-large networks and how to deal with their design, management, and control. Participants
may assess whether current approaches can be evolved to deal with the large increases in scale or whether
different, revolutionary paradigms are required. Participants will address the need for new techniques and
approaches for building models of ultra-large networks and developing simulation environments for
studying their behaviors. Suggestions for borrowing points of view form other areas such as complex
adaptive systems and from basic theory of modeling and simulation will be encouraged. The proceedings
will be compiled in a form that will provide a useable and significant guide for new NSF funding initiatives
for future network infrastructure research.